Remote Sensing and Map Interpretation: A Community Science Education Program

Through the proposed project, approximately 555,000 youth and adults will improve their knowledge of the basic sciences and mathematics, and learn to integrate and apply these disciplines, by analyzing local environmental problems using remote sensing imagery and maps. Faculty from the Cornell laboratory for Environmental Applications of Remote Sensing (CLEARS) and Cornell Department of Natural Resources will train county teams of teachers, museum and nature center educators, community leaders, and Cooperative Extension agents from throughout New York State to conduct educational programs with youth and adults in their communities. Previously developed CLEARS educator enrichment workshops and training materials will be enhanced and revised based on the interactions among Cornell Faculty, informal and formal science educators, and students during this program. A facultative evaluation focusing on the workshops, training materials, and educator teaching skills, and a summative evaluation focusing on student learning and attitudes, program delivery in the various community education settings, and the effectiveness of the county educator teams will be conducted. The results of the evaluation will be incorporated into a program handbook and used in nationwide dissemination of the program.